Molecular Tribology of Lubricants and Additives

Fundamentals of boundary lubrication will be investigated by studying the lubricating mechanisms which operate in extremely thin polymeric boundary lubricant films. The equipment used is a modified surface force microscope. Measurements of effective viscosity and elasticity and of limiting shear stress will be made over a wide range of film thickness, from monomolecular layers to bulk, and for strain rates up to 10*8/sec. Molecules to be tested include a number of linear and branched alkanes and perfluoropolyethers as well as aqueous media. The confining surfaces will include mica, bonded lubricants and metallized surfaces.